Photoconductivity Spectra of Loosely Bound Electronic States in Minerals

The principal investigator will develop experimental methods for the measurement of photoconductivity of selected insulating and semiconducting minerals. The PI will then relate photoconductivity spectra to energy level structure, and extract information on transport properties such as carrier densities and degree of delocalization of excited states. Ultimately he wishes to demonstrate the value of these spectra for interpretation of electronic and transport properties of minerals.